Aspects of Geometry and Topology Related to High Energy Theoretical Physics

DMS-0103877
John W. Morgan

The work proposed to be carried out under this grant concerns mathematical formulation and proof of some of the mathematical dualities arising from high energy physics. The first duality
to be studied concerns the F-theory/heterotic string duality.
The mathematical formulation of the duality is that for a
certain range of parameters the moduli spaces of classical
vacua for various compactifications of F-theory and of
heterotic string theory should be isomorphic. We conjecture
that the appropriate mathematical statement is that the
moduli spaces of heterotic vacua are non-normal infinite-sheeted coverings of the F-theory moduli space associated with
maximal parabolic subgroups of the fundamental group of
the F-theory moduli space. These maximal parabolic subgroups
are the fundamental groups of neighborhoods of certain
divisors at infinity. This study involves a detailed analysis
of the moduli space of semi-stable principal bundles over
elliptic curves as well as the notions of differential
cohomology. The second duality is the famous quantum field
theory duality between SU(2) Yang-Mills theory and the
abelian Seiberg-Witten theory. These dual descriptions
are simply the high and low energy limits of a twisted
version of supersymmetric Yang-Mills theory. One part of
a mathematical understanding of this duality involves
giving precise mathematical formulations of the high and
low energy limits of the twisted supersymmetric theory
and showing how certain correlation functions in this
twisted theory converge in the sense of perturbation
theory to the usual Donaldson polynomial invariants in the
high energy limit and to the Seiberg-Witten invariants in
the low energy limit. This part of the story is surely
amenable to rigorous mathematical formulation. The
more ambitious goal is to find some mathematical
formalism which allows for a mathematically rigorous
interpelation between these two limits -- a mathematical
substitute for the mathematically undefined quantum
field theory -- which would allow one to compare the
high and low energy limits.

The connection between mathematics and high energy
theoretical physics has always been a close one. In the
last few years it has taken on new aspects. With the
study of global issues in quantum field theory and string
theory has come a new level of interaction between geometry
and topology and these areas of theoretical physics. Belief
in the existence of these (to date non-rigorous) physics
theories leads physicists to make predictions, i.e.,
conjectures in mathematics. In a strange way these
conjectures play the role that physical predictions used
to play. Now the physicists take confirmation that they are
on the right track when these mathematical predictions can
be verified by rigorous mathematics, which, since it is
rigorous, can not make use of the quantum field theory
paradigms that we used to make the prediction in the
first place. The interest in mathematics of this interplay
is that the sorts of mathematical statements that are
predicted in this way have turned out to be quite novel
producing conjectures unlike anything that had been seen
before. Much of the progress the last ten or fifteen years
in large areas of geometry and topology traces back to this
source. One of the most fruitful sources of mathematical
conjectures has been various dualities in physics. These
occur when there is more than one classical mathematical
limit of a quantum field theory or string theory. The
mathematical objects that arise in the description of
the classical limits then are related because they are
limits of a single quantum field theory or string theory.
The mathematical problem is always the same -- define
rigorously what the relationship is and then establish it mathematically. The work proposed here is exactly along
these lines for two such dualities.